Young Scholars Program: Chicago as an Ecosystem

The Harry S. Truman College, in collaboration with Argonne National Laboratories and the Chicago Board of Education, will initiate a seven-week, commuter Young Scholars project in Ecology for 60 students entering grades 10,11. The program, "Chicago as an Ecosystem," will introduce participants to an understanding of the systems -- water, solid waste, air, parks, nature preserves -- and their symbiosis that undergird the city, through a combination of classroom, laboratory and field work.